Adaptive Process Models in Adaptive Control Machining

One of the goals of current research on machining is to provide adaptive control of metal removal operations, so that they can be performed unattended by human operators. This means that the control system must be able to correct for slowly varying conditions such as tool wear, and for sudden events such as tool breakage, formation of tangling-type chips, on-set of chatter, and other phenomena. The general approach is to use the computer to make the in-process decisions that would normally be made by a human operator. The principal investigator will study qualitative changes in the (empirical) physical models used to describe the metal cutting process. The principles of these models will be embedded in the control computer. Past and present data will be fed into the computer, which will 'adapt' the system not only by changing the processing conditions, but also, if required, by changing the process model. Analytical work will be followed by experimental evaluation.